Neural Mechanisms of Nutritional Homeostasis

LAY ABSTRACT IBN-9808400 Neural Mechanisms of Nutritional Homeostasis Motivational processes, in particular hunger, are driving influences in behavioral decision-making; however, it is not known how neural networks mediating feeding or other motivated behaviors are organized by the physiological mediators of hunger. One critically involved neurochemical is the biogenic amine serotonin (5-HT), which modulates affect and arousal in vertebrates and invertebrates alike. In a simple and accessible model system, 5-HT stimulates readiness to feed acting in the feeding motor network to enhance specific aspects of neuron excitability. Evidence suggests that 5-HT stimulates production of nitric oxide (NO), a critical modulator of neural activity in many animals. This proposal outlines plans to elucidate the role and mechanisms of action of 5-HT in regulating the enzyme that makes NO, and thereby hunger/satiation state. These studies combine behavioral and electrical measures with analysis of 5-HT and NO-related chemical compounds in single cells. These studies approach the basic organization of the feedback loops regulating nutritional homeostasis in all motile animals and can lead to a fuller understanding of mechanisms of hunger/satiation. They relate directly to health issues of weight-control in anorexia and obesity. Knowledge of these factors is likely to be significant to the development of autonomous robots capable of making least- probable-error decisions in a noisy environment, and to the evolution of artificial intelligence for whose optimal function motivation-based processes can provide the critical regulation of goal related activity, just as they do in real intelligence systems.